EIA: Maximum Likelihood Based Angle-of-Arrival Estiamtion ina Diffuse Multipath Environenmt

This proposal is for an Engineering Initiation Award that outlines an investigation into the use of the maximum likelihood (ML) estimation procedure for determining the directions of signals impinging on an array of sensors in a dispersive medium. The particular application of interest deals with the tracking of a radar target in the low-angle regime when a diffuse multipath component is present. The use of the ML estimator is targeted in light of its ability to contend with a small number of array date snapshots and because of recent algorithmic developments that significantly reduce the associated computational burden. The goal of this work is to define and develop an ML-based estimation procedure suitable for continuous sources as well as for point sources. Present ML-based methods assume the sources of emission to be point-like in nature and are only strictly applicable in a specular multipath environment. If successful, the resulting ML algorithm will be generalized for use in more complex diffuse signal source scenarios such as those encountered in tomography, radio astronomy, and sonar.